III: Small: AegisDB: Integrated Real-Time Geo-Stream Processing and Monitoring System: A Data-Type-Based Approach

This project contributes to the exciting field of geo-stream processing.
Specifically, an integrated real-time geo-stream processing and monitoring
system called AegisDB will be built and the research environment and results
will be leveraged to stimulate learning at the K-12, undergraduate, and
graduate levels.

The AegisDB system includes a Geo-Stream Algebra which uses a data-type-
based approach as opposed to a traditional tuple-based approach for
representing and querying geo-streams. The STREAM data types of the
algebra unify static data, traditional streams, geo-streams from fixed
locations, and geo-streams that move. The proposed Aggregate Algebra
generalizes the operator GROUP BY to generalized aggregations (GAs)
and bridges the fundamental gap between point observations from sensors
and spatio-temporally continuous phenomena. Several novel
spatial-centric operator optimization techniques are proposed,
which include a velocity-based filtering that utilizes the physical
limitations of most moving objects and a spatial-coverage-based query
combination that combines geo-stream queries based on
their intended spatial coverage.

The proposed AegisDB system will transform the ways to define and monitor
more sophisticated spatio-temporal events for alerting purposes. The result is
the significantly improved realtime access to important spatio-temporal events
related to our lives by professionals and the general public. The system will
be critical for important domains including transportation, environmental
science, hazard monitoring, and emergency responses.

This project has strong education and outreach components. Environmental
models for K-12 teachers and students using real-time environmental datasets
will be designed. An informal session on how to collect, store, and distribute
environmental data will be presented through the Family Fun Science
Saturday events of the Elm Fork Education Center of UNT. A course module
on geo-stream processing will be developed. Women and minorities will be
recruited into the research project. Undergraduate students looking for
research opportunities will be mentored.

For further information concerning this project see the project web page:
URL: http://www.cse.unt.edu/~huangyan/AegisDB/